Doctoral Dissertation Research: Community Perception and Amplification of Risk: A Case Study

Trumbo, Craig This doctoral dissertation research applies a `social amplification of risk` framework to understand cancer concerns held by residents near the Ames Laboratory at Iowa State University. The laboratory ran a small research reactor up until 1965. Members of the community around the laboratory now believe that they are part of a cancer cluster, possibly caused by the reactor -- a fear that has not been borne out by a recent epidemiological study. Nonetheless, the concern remains. The CO-PI intends to investigate the determinants of residents' concern in this instance using data gathered through interviews and focus groups with community members. Particular attention will be paid to the relative contributions of psychological, sociological, and cultural factors in shaping the risk perceptions of residents around the laboratory. This project will add to scientific understanding of risk perception under field conditions and provide information that will aid in the efforts of risk communicators. f8 Û-ª þ ; + + Ûª▓ ÑOh ª' +'ª▒0 + + S u m m a r y I n f o r m a t i o n ( ++++++++++++ - ++++++++++++ ++++++++++++ ++++++++++++ ▀ Û ( L p ` » ] $ H l +++ N:\WW60\NORMAL.DOT